US-Ukraine National Academies Workshop on "Climate Change, Regional Consequences, and Management Measures" in Washington, DC, Fall 2009

The Ukrainian government has asked the National Academy of Sciences of Ukraine (NASU) for advice with regard to projections for extreme flooding and plans for dealing with such events, including consulting international expertise. The NASU turned to the US National Academies (NAS/NAE/NRC) to seek a joint effort in understanding the degree of climate-change-induced increased risk of flooding in the Carpathian Mountains of Ukraine, and other changes in the water sector, and in addressing how to manage these risks. A Workshop to address these questions, to be hosted by the US National Academies, is planned for late Fall 2009 in Washington DC. The Army Corps of Engineers? International Center for Integrated Water Resources Management is providing core funding to support the Workshop, with additional support from the National Science Foundation.